Millennial-Scale Climate and Ocean Changes in the Western North Atlantic

9510075 Keigwin Water masses of North Atlantic are known to have varied on glacial/interglacial and millennial time scales. Deep northern water was suppressed during severe climates, intermediate water flow was enhanced and Gulf Stream temperature and salinity varies. Long and large diameter cores are now available from Blake and Bahama outer ridges and the Carolina slope. Using geochemical proxies the principal investigator will recreate deep and intermediate hydrographic conditions for the last glacial maximum, deglacial low salinity event and the deglacial cooling event. ***